Structural Preserving Numerical Methods for Eigenvalue Problems

Large and sparse matrix computational problems are often solved by certain
subspace projection methods -- most commonly Krylov subspace type projections.
The basic idea is to project the original problems (matrices) of high dimensions
onto certain subspaces to arrive at smaller and manageable ones, and the smaller
reduced problems can then be solved by one of the dense matrix algorithms such as
those in LAPACK. Existing projection techniques often do not preserve structural
properties enjoyed by eigenproblems from various engineering applications, and
therefore the reduced problems do not necessarily reflect their practical
backgrounds in any meaningful ways. It is conceivable, as it is often the case,
that approximating a problem by one of its own kind would do better. Indeed there
are cases where structural preserving methods are far superior to those that are
blind to the inherent structures. The objective of this proposal is to exploit
in depth structural properties of matrices from the standpoint of their application
backgrounds and to develop accurate and efficient structural preserving numerical
methods for eigenvalue and related problems of practical significance. A number of
interesting ideas will be pursued here, including a general framework for carrying
out structural preserving subspace projections, an unifying convergence analysis
for all Krylov subspace type projections that connects moment matching properties
in reduced order modeling and eigenvalue and eigenvector convergence theory, and a
sub-orthogonalization process that will serve as the basis to devise efficient
projections.

Eigenproblems appear ubiquitously all across applied science and engineering,
and their solutions are routinely sought and are critical in one way or another
to various scientific computational tasks. Examples includes computational
problems from structural dynamics, control systems, circuit simulations,
computational electromagnetics and microelectromechanical systems, data mining,
and web search engine design, etc. This investigation shall advance significantly
the underlying engineering applications by making the involved matrix computations
much less expensive, more accurate, and most importantly result in scientific
simulations that reflect better the underlying physics. Graduate students with
emerging expertise in numerical eigenvalue computations will be involved.